Acquisition of a Computing System for the International Seismological Centre

This award provides one-half the funding for the acquisition of a computing system for the International Seismological Center (ISC). The ISC has committed the remaining half of the funds required. The International Seismological Center is the organization charged with the task of assembling final seismological observations, deriving definitive hypocentral solutions and magnitudes of earthquakes on a world-wide basis. The hypocenters and observations are archived on magnetic tape. The new computer system will be used to store readings, compute focal parameters and to prepare files of data on magnetic tape and in printed form for external users, including over 80 institutions in the U.S. The data are used as the basis for studies of earthquake mechanisms, earth structure and global seismicity.